Quasi-isometric geometry of groups

Most of this proposal lies under the umbrella of a vast program proposed
by Gromov: classify finitely generated groups by their quasi-isometric
geometry. One way to study the geometry of a group is via a space called
the asymptotic cone; in several important cases, interesting algebraic
structure of groups has been found encoded by the topology of their
asymptotic cones. Through a study of asymptotic cones, the PI will work
towards understanding the geometry of several particular classes of
groups, including mapping class groups, relatively hyperbolic groups, and
three-manifold groups. In particular, the goal of the project is to
develop new geometric invariants with an eye towards proving one of the
main geometric conjectures concerning mapping class groups, namely
quasi-isometric rigidity. This conjecture asserts that no other groups
geometrically look like mapping class groups.

Groups are an algebraic way of encoding the symmetries of a space. It
turns out that an important class of groups (the finitely generated ones)
are themselves associated with a certain geometric object. This object is
built by taking each symmetry to be a point and declaring the distance
between a pair of points to be the number of simple symmetries one has to
apply to get from one to the other. In the study of finitely generated
groups, insight into their geometry can often be gained by looking at the
group from ``infinitely far away'' -- this notion can be made
mathematically precise and yields what is called an asymptotic cone of the
group. The PI proposes certain ways to study groups from this asymptotic
viewpoint.